University of Washington Precollege Chemistry Teacher Program

Under this project, the department of chemistry of the University of Washington will conduct a four-week in-service institute for 30 precollege chemistry teachers from Washington and other states in the Pacific Northwest, during each of the summers of 1987, 88, and 89. Follow-up activities, aimed at establishing a lasting network for regional teachers, will include the development of curricular units and various modes of inservice teaching by institute graduates, the creation of academic year minicourses, and the continuing exchange of new institute materials. The content of the workshop, based on experience in the summer of 1986, will feature lectures on "The Interactions of Energy with Matter and a second series of lectures which will address different themes in each of the project years: "The Chemistry of Metals," "Chemistry of Non- Metals," and "Environmental Chemistry." In addition, each summer will feature a component on the Frontiers of Chemistry, including lectures and site visits on such subjects as Enviromental Chemistry, Modern Analytical Chemistry, Surface Chemistry, and Medical Imaging. Three afternoons per week will be devoted to laboratory work, participants will receive assistance in preparing and presenting demonstrations, and there will be an introduction to the use of computers in chemistry. In addition, all participants are expected to give pedagogical presentations to their colleagues, to prepare a library report, and to participate in workshop sessions devoted to issues in teaching. Thirty teachers (estimated to be 27 from high school and 3 from junior high school) will be selected each year from applications solicited from Washington and other states in the Pacific Northwest. Non-commuters will be housed and fed at the University, with expenses covered from the grant, and all will receive stipends of $200 per month. The teachers will receive nine academic quarter credits for their participation in this institute, and another two on completion of a curriculum unit. Outreach and network activities are expected, and will be supported by academic year minicourses.